Integration of CAD/CAM for Injection Molded Plastic Parts

Researchers have been working for 10 years on various aspects of injection molding, treated separately: material properties, fluid flow, heat transfer, machine characteristics, plastic part design, etc. They will integrate these various aspects to include the computer-aided design of plastic parts, and to cover computer control of the process. They will extend their activities to include injection molding of materials other than pure thermoplastics, e.g., thermosets and fiber-filled composites. Researchers will test packages applicable to the design of plastic parts, test and evaluate existing geometric molding systems in terms of their modeling capability for constructing a part and the tooling needed to produce the part, formulate techniques for adaptively controlling the molding process, and develop the software to integrate a complete CAD/CAM system for plastic parts. They will study flow of molten plastics through openings of various sizes and shapes in molds; determine how thermoplastics pack, cool, and shrink in molds; investigate the mechanical properties of molded parts as they are affected by alternative mold-design configurations and processing conditions; and simulate and investigate the injection molding of thermosetting plastics and polymers containing fillers such as glass fibers.